U.S.-Brazil: Influence of Support and Additives on Pd-BasedCatalysts for Emission Control

9724169 Campbell This U.S.-Brazil award will support a research collaboration between Dr Charles T. Campbell and Dr. David G. Castner of the University of Washington to work with Professor Martin Schmal at the Federal University in Rio de Janeiro, Brazil on the influence of support and additives on Pd-based catalysts for emission control. The goal of this project is to clarify catalytic processes which are relevant to environmental protection. They will investigate the relationships between the activity of a series of palladium-based catalysts and their surface structure. They will prepare catalysts and test them with classic techniques, such as activity measurements, surface areas, temperature programmed reduction, and porosity. Their surface structure and composition will be characterized using facilities at the University of Washington, which are not available in Brazil. Schmal's group has extensive experience in the characterization of supported catalysts with reactor studies, selective chemisorption, temperature programmed reduction and temperature programmed oxidation and adsorbate structure. The U.S. group brings expertise in the area of surface analysis and the surface science of catalysis. Findings from this research will be useful in developing commercial supported catalysts with optimum structures and maximum emission control activity. The full kinetic and mechanistic information will identify critical barriers and operating conditions that limit emission control activity, and possibly provide a basis for developing strategies to overcome barriers and limitations. The results will also provide information about properties that would be desirable to have for a promotion of emission control catalysts. * * *